Southwest Texas Rural Stem Initiative

This project is creating a scholarship program for students in the biological sciences, physical sciences, mathematical sciences, computer and information sciences, the geosciences, or engineering. The project awards a minimum of 31 scholarships to low-income, minority, and non-traditional academically talented students each year, with awards ranging from $1,500 to $4,500 a year.

The goal is to encourage and enable academically talented, financially disadvantaged persons to enter the high technology workforce following completion of an associate, baccalaureate, or graduate degree. The project uses a combination of expanded scholarship opportunities, a rigorous recruitment plan, mentor-designed workshops, industry involvement, career placement, and student support structures delivering services such as academic enrichment, advising, tutoring, mentoring, and career exploration. Scholarships are renewable for two years at the College and an additional two years at a four-year institution to complete a baccalaureate degree in one of the eligible fields.